PARTICIPANT SUPPORT FOR ATTENDANTS TO THE CONFERENCE: TYPE THEORY, HOMOTOPY THEORY AND UNIVALENT FOUNDATIONS

This grant is for participation in the conference "Type Theory,
Homotopy Theory and Univalent Foundations", at the Centre de
Recerca Matematica in Barcelona (Spain), September 23-27, 2013.
The grant will enable selected mathematicians affiliated with U.S.
institutions to participate in the conference. The allocation
of funds will favor graduate students, postdocs, junior faculty,
and faculty with no current NSF support.

The topic of the conference are the recent connections
discovered between type theory and homotopy theory based on the
interpretation of identity types as path spaces. These
connections provide a new topological intuition that facilitates
working with type theories and allow for new computational tools
for manipulating homotopy-theoretic structures. Furthermore,
Voevodsky's Univalent Foundations program provides a solid
logical basis for the practice of identifying isomorphic
structures, common throughout mathematics even if it is not
allowed by standard set-theoretic foundations.

The topic of the conference has an unusually wide impact since
it involves several areas: mathematical logic, theoretical
computer science, homotopy theory and category theory. In
particular, the developments offer a new perspective on
computer-assisted formalization of mathematical proofs and
verification of their correctness, which promises to benefit all
mathematical endeavor, and further influence on design of
programming languages.

Conference web page: http://www.crm.cat/2013/ctype